Stochastic Convexity in Queueing Networks and Its Applications

This project is collaborative with David D. Yao of Columbia University. The principal investigators developed the notions of strong stochastic convexity and directional convexity which are sample-path based structural properties essential to the analysis and optimal design of stochastic discrete event systems in general and queueing networks in particular. This project focuses on properties relating to structural and policy changes in queueing networks. To model and understand these changes, notions of monotonicity and convexity do not apply directly. New concepts and new machineries along the lines of stochastic rearrangement and stochastic majorization will be developed. These notions provide mathematical support for "pairwise interchange" arguments that are widely used in scheduling, control, and resource allocation. Preliminary studies have demonstrated their usefulness and effectiveness in dealing with structural and policy changes. Furthermore, these properties are natural extension of stochastic convexity. A new, unified hierarchy of (sample-path based) second-order properties in queueing networks appears to be now emerging. Together, these properties will support the (static) parametric design of queueing networks, and dynamic scheduling and control.